Integrated Use of NMR, Workstations and Modelling Software in Undergraduate Laboratory Experiments

9451116 Bieber The major goals of the project are to develop and perfect a number of NMR and molecular modeling experiments that are suitable for integration into the undergraduate chemistry curriculum. An NMR and molecular modeling software will be purchased. Several excellent NMR experiments have been designed and tested by faculty for the biophysical, inorganic, organic and physical chemistry laboratories. and more than a dozen undergraduate students are engaged in research projects that use NMR. Funding the proposed project will allow faculty to develop additional NMR experiments for undergraduate courses, will expose all majors and many non- majors to NMR, and will permit students to apply powerful molecular modelling tools to chemical problems. The project will make it feasible for other institutions which lack NMR instrumentation to carry out NMR data analyses and molecular modelling studies at modest cost, because NMR data, processing macros and documentation will be available from Arizona State University through electronic communication or in tape formats. By using electronic networks, the impact of the project will extend well beyond undergraduate instruction at Arizona State University.